Workshop on a Systematic Approach to Robustness, Reliability, and Reproducibility in Scientific Research February 24-26, 2017 in Atlanta, GA

The goal of this workshop is to gain insight from the scientific community on aspects related to the robustness, reliability and reproducibility of the scientific practice. The workshop will explore fundamental concepts that underpin the collective understanding of how to assess the quality of science, a challenge for all scientific disciplines. The format of the workshop is designed to elicit a broad range of input from leaders in their respective fields.

This workshop concerns the development of effective practices with a manifestly cross-disciplinary character, designed to improve the transparency of the scientific process, to speed discovery and innovation, and to inform policy makers and the public. The output of the workshop will include a report that summarizes the conclusions reached by the attendees, together with a roadmap for future workshops that will address specific community needs identified at this workshop.

This project is supported by the Physics Division in the Directorate of Mathematical and Physical Sciences, the Division of Molecular and Cellular Biosciences in the Directorate for Biological Sciences, and the Division of Advanced Cyberinfrastructure in the Directorate for Computer & Information Science & Engineering.